Ice Coring and Drilling Services

ABSTRACT

Bentley
00-03289
The University of Wisconsin will support the project funded by Office of Polar Programs at NSF that require support taking ice-cores from, or drilling into, glaciers and ice-sheets. This involves maintaining the NSF's current inventory of drill systems and making them available to science projects, or operate them for projects. The projects are expected to be diverse, and to vary from year to year. They will occur at both poles, and at more temperate and high altitude sites. University of Wisconsin will work with the science community to define requirements, scope solutions before formal proposals are submitted to OPP. Additional engineering development that will occur during the first year of the contract will include the development of a drill to rapidly making shot-holes in polar firn, and another system to prepare a 300 meter bore-hole in the ice sheet at the South Pole for a broad-band seismometer array. A longer term activity will be to evaluate the current 5.2" deep drill system to recommend improvement, and make a development plan to implement the improvements.